CAREER: Remote Sensing of Damage in Large Civil Structures Using Embedded Sensors for Hazard Mitigation

9625004 Pines This is a Faculty Early Career Develop (CAREER) award. The project involves integrating research and education to advance the technology of smart materials and structures and techniques to remotely monitor damage in large civil structures. The research focuses on the development of a smart civil structure with embedded piezoelectric sensors for inferring structural damage. The research will emphasize the integration of embedded sensors, actuators and processors into load carrying members of large civil structures for the purpose of remote damage detection. Throughout the course of the research, analytical and experimental results will be incorporated into the Clark School of Engineering interdisciplinary undergraduate and graduate curriculum which includes courses on structural dynamics, smart structures, earthquake engineering and nondestructive evaluation. The goal is to develop a parallel approach that bridges the gap between theory and reality. Students will be involved at all levels of the program, including analysis, design, construction and the dissemination of results. ***